ICES: Small: Artificial Human Agents for Virtual Economies

The goal of the project is to be able to replace human agents with
artificial agents in studying two-player games. This project, if
successful, will greatly enhance the ability of economists to test
economic theories by partially replacing laboratory experiments with
simulations. Over the last decades laboratory studies have proven
invaluable both for the validation (and invalidation) of economic
theories, and for the practical purpose of testing mechanisms (such as
auctions) in the laboratory prior to practical implementation. The
ability to use simulations with artificial agents in place of
laboratory experiments with live human beings will both reduce the
cost of validation and testing, and make it possible to explore
quickly a much wider range of theories and policy alternatives. It
will also enhance our understanding of human behavior and enrich our
knowledge of the connection between human and artificial intelligence.

Agent-based modeling is an emerging and attractive approach to
validating economic theories. Existing research has focused on simple
and naive agents. This project proposes as the next step to develop
artificial human (economic) agents capable of mimicking the behavior
of human laboratory subjects in the context of two player simultaneous
move games. Substantial and detailed data is available on human play
under these conditions. Existing algorithms fall only slightly short
of the ability to mimic human play but do not yet implement fully
autonomous agents. Based on hidden Markov models, the PIs propose to
develop and investigate a framework of belief learning that is broad
enough to encompass many existing learning algorithms including
reinforcement learning, fictitious play, and smooth fictitious play.
Moreover, based on this framework, the PIs propose to derive more
sophisticated learning methods to fully develop artificial agents. This
research will pursue two important directions. First, the PIs will
introduce the initial calibration of priors based on available
information and a cognitive hierarchy model. Second, the PIs will allow for
the reconsideration of the existing model when "surprises" occur. The
project will lead to the next stage of research in both economics and
computer science in broadening the class of artificial agents to
attack broader and more economically important tasks. It will also
enrich the research on graphical model learning for artificial
intelligence.